Research Planning Grant: 3-Dimensional Displays Using Multiple Holograms

9713370 Bankovskaia This planning grant will help the PI to prepare a strong research program at the University of Detroit in the field of holography. ***